Self-Consistent Field Theory for Correlated Electrons in Solids

9811381 Bickers Theoretical and computational research will be continued on this project to study the properties of correlated electrons in solids within the framework of one-body and two-body self- consistent approximations. Such approximations constitute the natural generalization of Hartree-Fock theories to systems with strong interactions and large electronic fluctuations, including the cuprate high-temperature superconductors. The research proposed concentrates on (a) the extension of the one-body self-consistent field approach to models with arbitrary space-and time-dependent interactions, and (b) the development of a computationally efficient technique for solving the parquet problem in low- dimensional systems. These projects are made possible by using a novel representation for two-body scattering vertices. %%% This theoretical research project involves developing computational techniques to deal with electronic systems, such as the high temperature superconductors, where the electrons interact strongly. In cases such as these, conventional theoretical and computational techniques fail to provide accurate results. If successful, the project will have wide application. ***